Three-Dimensional Evolution of Intrusions

0095382/Alford

This project involves the study of thermohaline intrusions in Puget
Sound. The study seeks to determine the relative contribution, to heat
and salt fluxes at the edges of the intrusion, of shear-generated
turbulence and doubly diffusive processes. The work will involve a
two-ship survey of an intrusion within the Sound and subsequent data
analysis. It is anticipated that the work will provide information
about a basic question in geophysical fluid dynamics, the way in which
two distinct processes, shear turbulence and double diffusion,
contribute to small scale mixing when both are present. The work will
also provide information on the structure and evolution of a type of
feature, a thermohaline intrusion, known to be present in many oceanic
situations, particularly near thermohaline fronts, but not yet well
studied. Last, the work will evaluate an experimental approach for
possible future use in the study of thermohaline intrusions in a more
oceanic setting.